Doctoral Dissertation Research: An Archaeological Examination of Shoshone Collective Action

Under the direction of Dr. Bruce B. Huckell, Matt O'Brien will conduct dissertation research that centers on the socioeconomic organization of cooperative hunting. Humans evolved in a hunting and gathering milieu and the multiple forms of social organization that characterize modern groups all derive from this underlying base. How the transformation from egalitarianism to complex social stratified societies took place constitutes a central archaeological question and this research project focuses on this issue.

Mr. O'Brien's dissertation research addresses the question of socioeconomic inequalities in communal hunts from an archaeological perspective. The Co-PI will focus the analysis on the faunal assemblage from the Eden Farson site. Eden Farson is a Protohistoric period (AD 1350 - 1750) Shoshone campsite with the skeletal remains of over 220 pronghorn antelope. The site itself was occupied by 12 separate family units and the antelope remains were found in association with all of them. By determining how individual cuts of meat -- some choice and some less so -- were distributed, Mr O'Brien can gain insight into the relative status of each household. Shoshone social structure is considered a classic example of egalitarianism with a limited gerontocracy and fluid group affiliation. Yet, there are limited ethnohistoric accounts of temporary leadership during seasonal fishing along the Snake River. Although the Shoshone were known for their diverse diet, pronghorn played an important subsistence role in the pre-horse Shoshone.

The proposed project contributes to Shoshone prehistory of the Rocky Mountains and High Plains, but also extends to anthropological theory into past social organization. First, this study will begin to fill in the gaps of the Late Prehistoric Period to Protohistoric Period in the western High Plains and Rocky Mountains. Second, it will provide an opportunity to bridge the archaeological evidence to the existing ethnographic record of Shoshone culture. This research provides a case study to test whether sharing concepts, or models, developed from empirical observations of contemporary foragers can be applied to the past. The combination of traditional faunal analysis with an innovative approach provides a more holistic interpretation of past life-ways.

This dissertation research also provides broader impacts beyond those focused on prehistoric food sharing. This research will provide the Co-PI a crucial opportunity to perform independent research that will aid in his professional development. The results from this study will be accessible to the anthropological community through future peer-reviewed publications and presentations at nationally recognized conferences. From a logistic standpoint, this research will result in the curation of the Eden Farson collection according to Wyoming state standards, which will provide access to this assemblage for future research.